CAREER: Synergistic Motion & Sensing for Resilient Cyber-Physical System Navigation

Illegal communication traffic, electronic warfare, and an increasingly contested radio frequency environment are driving the rapid proliferation and sophistication of threats to radio frequency signals. Such interference have had cascading negative impacts on air, ground, and sea cyber-physical systems (CPS) used in transportation and communication, including runway shut-downs at multiple major U.S. airports and civilian property damages, injuries, and fatalities in conflict areas. The U.S. needs resilient positioning, navigation and timing (PNT) systems that can withstand this cyber-physical signal interference. This CAREER project will demonstrate a novel generic navigation resilience quantification framework that can mitigate interference and help strengthen the nation’s transportation and communication infrastructure. Integrated into the research activities is a goal to create stronger awareness of PNT engineering career trajectories and update the educational experience for the next generation of engineers who will lead future CPS PNT innovations. We address these needs through high school student competitions, interdisciplinary undergraduate and graduate-level research experiences, and PNT industry member professional development opportunities.

The project’s objective is to create the foundation upon which researchers, CPS manufacturers, and regulating agencies will be able to clearly and quantifiably prove navigation resilience for entire classes of radio frequency signal interference. The project hypothesizes that a generic framework for navigation resilience prediction—which is currently missing—is a key to developing proactive, widely-applicable, and resource-rich strategies to counter signal interference. The project defines cyber-physical signal threat mitigation guarantees, which are expressed as aleatory and epistemic uncertainty bounds on CPS navigation errors in the presence of unknown, undetected disturbances. The intellectual merit lies in three main areas. (i) Developing new theory to measure and model non-linear, non-Gaussian, time-correlated dynamic and sensor errors; these models are applied to understand the impacts of CPS motion on signal resilience. (ii) Analytically determining “worst-case”, resilience-minimizing attacks for stochastic state estimators and detectors; such attacks can be used to develop defenses and bound resilience risks. (iii) Addressing unresolved challenges in interference testing for signals at protected frequencies. Validation is performed for wheeled CPSs integrating ubiquitous but vulnerable GPS with resilient inertial sensors and generic dynamic constraints.